Novel Platinum Thiazole Complexes

The project involves the synthesis and characterization of the platinum complexes of thiazole derivatives and subsequent studies of their binding to nucleic acids and their constituents. This will be part of an undergraduate research program at Trenton State College. A detailed examination of the complexes by x-ray crystallography is planned. Additional work will include a detailed analysis of their binding modes in order to elucidate the mechanism of interaction with DNA. %%% Research Planning Grants enable women who have not had prior independent Federal research support to develop a competitive research proposal. This project involves the synthesis and characterization of platinum organometallic compounds and their bonding to DNA.